Unimolecular Reaction Dynamics

Moore is supported by the Experimental Physical Chemistry Program to continue his studies of the dynamics of chemical bond breaking in the ground electronic states of molecules, with the goal to develop quantitatively predictive models for both thermal and state-selected unimolecular reactions. A combination of spectroscopic and dynamical measurements will be performed on formyl fluoride, where intramolecular vibrational energy redistribution and the dissociation process to HF + CO proceed at comparable rates, and observed rate constants depend strongly on rotational and vibrational quantum number. Initial and final states may be fully resolved experimentally. The measurements will be compared in detail with quantitative, state-of-the-art dynamical models. These results will then help set the limits of validity for transition state theories, and reveal the possibilities for state-selective chemistry.

Full detailed understanding of chemical reactions for benchmark molecular systems is needed to lay the groundwork for developing quantitatively predictive models for complex practical systems. Outcomes from this research will yield insights useful for modeling the chemistry involved in combustion and atmospheric processes.